QEIB: Using Phase Dynamics and a Model Experimental System to Understand the Effects of Extrinsic Variability on Predator and Prey Metapopulations

Population density cycles that appear synchronous, or irin-phasel, over large geographic areas
are some of the most striking phenomena in population biology. In theory, such synchrony is
caused either by widespread meteorological factors, or by movement of individuals between
populations. Theory for predator-prey 'metapopulationsl' that extend over groups of patches
also links synchrony to regional persistence. The study of these phenomena in nature has been
hampered by difficulty in identifying both the cause of population cycles and the roles of
environmental factors and interpatch movement in modifying population fluctuations and
synchrony. The environmental forcing of metapopulations which is explored here is relevant to
biological control of pest species and conservation. Additionally, extreme weather events
caused by global warming have the potential to synchronize regional populations, which might
cut short regional persistence. The proposed work uses mathematical techniques focused on
phase dynamics to analyze synchrony and build precise links among environmental variability,
population dynamics and extinction. Phase dynamics have been widely used in neurobiology,
but their potential in ecology is only just beginning to be realized. This project develops new
analytic tools for an ecological audience and uses a model experimental system, bacteria and
protozoa in laboratory microcosms, to bridge the gap between populations and metapopulation
theory. The work starts with a classic model and then develops more precise and biologically
realistic models, which in turn will fuel further, more precise, experimental tests.
Two-patch predator-prey systems coupled by random dispersal will provide a link with
analytical solutions, which numerical simulations and experiments can build on to consider more
complex and realistic situations. Two patch models will be used to derive equations which relate
phase, the point in a predator-prey cycle, to population dynamic processes. The dynamics of
phase difference between two patches will be derived and used as a measure of synchrony,
which can be related to regional persistence and within-patch predator-prey dynamics. Phase
dynamics can also distinguish whether persistence is controlled not by deterministic equilibrium
dynamics (the focus of most theoretical studies), but instead by long-lived transient dynamics
which may dominate during ecologically relevant time scales; specifically regression of phase
difference through time will be used to calculate the duration of transient dynamics, when phase
difference becomes zero. Experimentally, the initial phase difference of predator-prey
oscillations in two linked patches will be manipulated by starting microcosms with different
predator and prey densities in each patch. Statistics will then quantify the phase difference
between patches and test its correlation with regional persistence time. Repeating this
procedure in microcosms with different movement rates between patches (lengths of corridors)
will test the prediction that increased movement rate between patches will reduce phase
differences and regional persistence time. Experiments with 1-8 patches will manipulate
environmental variability through temperature fluctuations and control whether this operates
uniformly across a region or just in a single patch. Quantification of regional persistence time
and phase differences between patches will then test the predictions that local variability
enhances regional persistence, but regional variability and increased movement reduce regional
variability.
This project will demonstrate how and why environmental variability influences dynamics
and extinction in regionally-distributed predator and prey systems. The techniques of phase
dynamics will be brought to a broader ecological audience, and two graduate students will be
trained with the necessary mathematical, modeling, statistical and experimental techniques that
are required to understand the links between the environment and populations. This work will
provide a paradigm on which future combined experimental and theoretical studies of population
synchrony and persistence can build.